Workshop on Future Directions in Network Modeling, Simulation, and Measurement, August 15-16, 2005, Arlington, VA

The National Science Foundation (NSF) and the Defense Advanced Projects Research Agency (DARPA) jointly sponsor this workshop on the Future Directions in Network Modeling, Simulation, and Measurement research. The goal of this workshop is to bring together both developers and potential users of advanced network modeling, simulation, and measurement technology in order to both assess the current state of the art and to provide recommendations concerning the next steps that should be taken to maximize the impact of such technologies within the networking research community and industry